Learning and Recognition in Natural Environments

During the last two years research in machine vision has used psychological evidence to develope a representation for shape that attempts to capture people's notions about the part structure of 3-D objects. The mathematical basis for this representation is superquadric profile solids, linear and quadratic deformations, and contructive solid geometry (CSG). The concise nature of this representation has led to the development of a technique for approximating the minimal length encoding of range data in terms of this 3-D shape representation. This technique has been used to experimentally demonstrated both learning and recognition of 3-D objects in unconstrained outdoor environments. The current technique, however, is still quite experimental. Further, it is inefficient on serial machines, has difficulties with largely occluded forms, and is limited to use with range data. This project, therefore, will investigate the potential for improving the reliability, efficiency, and applicability of our general approach by (1) incorporating feature information such as edges, corners, and T-junctions, (2) employing a coarse- to-fine search strategy, (3) extending the current technique to multiple views (e.g., stereo and motion), and (4) investigating how our technique might be adapted for use with standard intensity imagery.